Multigraded Commutative Algebra

This award supports the research of Maclagan to develop multigraded
analogues of several fundamental properties of graded polynomial
rings. This is motivated by the many naturally multigraded objects
arising in commutative algebra. An important example is the Cox
homogeneous coordinate ring of a simplicial toric variety, which
allows algebro-geometric questions about sheaves on the toric variety
to be studied using commutative algebra techniques. Applications
outside commutative algebra of Maclagan's research include those to
algebraic geometry (explicit construction of multigraded Hilbert
schemes, and projective normality of smooth toric varieties) and
combinatorics (properties of matroids). One of her projects allows
concrete calculations of moduli spaces arising in the study of the
McKay correspondence, which has been an active area of research for
the last two decades.

This research lies in the intersection of commutative algebra and
computational and combinatorial algebraic geometry, in the area of
toric geometry. The most classical version of these fields studies the
geometry of solutions to polynomial equations in several variables.
Such questions have been studied for hundreds of years, but continue
to arise in applications such as robotics, statistics, and coding
theory. The particular aspects to be studied here have applications
in optimization (integer programming through toric ideals) and
theoretical physics (through the McKay correspondence).